REU Industrial Research Site for Undergraduates

9500708 Potts Under this project, GTE Laboratories will ppovide support for 15 undergraduate students per year as part of its ten week summer research program, now in its eighteenth year. Students are selected from a nation-wide applicant pool and assigned to a member of the Laboratories' technical staff to work on a pre-selected research project in the area of computer, information and telecommunications networks. Requirements include both oral and written reports. University faculty members play an important role in the selection and administration of the program. Strong efforts are made to recruit women and minorities. ***